Travel Funds for IUTAM Symposium on Fluid Mechanics in the Spirit of G.I. Taylor

Travel assistance is provided to U.S. participants with accepted contributions at the U.K. Symposium: "Fluid Mechanics is the spirit of G. I. Taylor." The spirit of this symposium is to re-emphasize how simple theoretical analyses and imaginative experiments can result in results of fundamental significance and wide applicability, even in the current age of highly complex tools of analysis.